Fracture Mechanics Applied to Concrete

This research will continue and complete the innovative experimental fracture mechanics research in concrete. The investigations to date have shown that consistent non-linear fracture mechanics concepts can be developed for concrete for differents modes of loading, (under Mode I and II loadings). The major objective of this continuation research is to verify these predictive methodologies for discrete crack growth in concrete. This research will have analytical and experimental components. The experimental component will involve both fracture process zone control studies using Mode I and Mode II type loadings, and concrete beam studies for flexural and diagonal tension test on crack propagation. Numerical analyses studies will be carried out to verify the experimental results. The Kr values obtained using the formula contained in ASTM 561-81 will be re-evaluated using a process zone model. The final numerical model will include the effects of aggregate interlock and normal and shear stress interactions.